ITR/IM: Adaptive Real-Time Geoscience and Environmental Data Analysis, Modeling and Visualization

0121693
Sitar

This project involves a 3-year interdisciplinary effort to build on new advances in information technology to develop an adaptive real-time system for active management, processing, modeling and visualization of environmental and geoscience data. The P.I.s will develop a set of real-time, integrated data base management and field data acquisition tools for rapid and adaptive assessment of the various phenomena following and during major catastrophic events, such as earthquakes, fires, hurricanes, and floods. The P.I.'s interest is in real-time integration of the incoming information such that predictive models of expected site and structure response are continuously updated. Specifically, the P.I.s will integrate their efforts in the following areas: a) development of GIS databases capable of real time updating with multiple streams of information; b) adaptive digital field data acquisition/mapping; c) development of robust, low cost, intelligent field instrumentation capable of real time data transmission (MOTEs); and d) data visualization and adaptive modeling of the observed phenomena.
***